Boundary Layer Clouds and Climate

The physical processes involved in the generation, maintenance, and dissipation of marine stratocumulus will be studies using observations and theoretical models. These processes will be represented (or parameterized) in the current version of the NCAR community Climate Model (CCM) to provide improved simulations of low-level cloudiness and the associated surface fluxes of moisture and energy for both solid and partially cloud conditions. The thermodynamic and dynamic models that will be used to develop this parameterization will be tested and developed by using data collected from aircraft and satellite observations made off the coast of southern California from June 29 to July 19, 1987 during the field phase of the First International Satellite Cloud Climatology Regional Experiment (FIRE) and by a regional application of the parameterization. These studies will make use of mean, turbulence,cloud microphysics, and radiation measurements obtained from NCAR Electra and the UK C-130, cloud observations from satellites, and synoptic-scale analyses from the ECMWF. The focus of the proposed process studies will be on entrainment and mixing at cloud top,convective circulations in marine stratocumulus, and factors that control the spatial and temporal variations in the cloud structure. The theoretical work will involve the use of a radiatively-forced 18-coefficient moist spectral model that include horizontally varying cloud- based and cloud-top heights an dan above-cloud inversion layer. The theoretical results from this model will be compared with the structure obtained from the FIRE measurements and will provide the dynamical basis for the circulation velocities that are parameterized in the boundary layer model that will be embedded in the CCM. This research is important because it intends to increase understanding of how clouds influence climate.